Eclipse

Eclipse| is a one-hour program within the prime-time series NOVA, to be broadcast nationally during the 1991-92 season on the Public Broadcasting Service (PBS). The program will document the total eclipse of the sun that takes place on July 11, 1991, and the research performed at the observatories located atop Mauna Kea on the Big Island of Hawaii. The program will trace three narrative lines. The first will be that of the eclipse itself and its importance for ongoing scientific investigation of the solar corona and solar physics. The second will be that of ongoing problems in understanding the sun, especially the issue of solar variability. The third will place this eclipse within the history of eclipse science. The passage of an eclipse over a major observatory complex is a unique occurrence -- it has never happened before, and will not happen again for several generations. The four minutes of totality will allow solar astronomers to turn deep space instruments on the sun for the first time. At the same moment, however, this eclipse marks what many observers feel is the end of a 130 year research program. Eclipse| will provide its audience with a portrait of a spectacular natural phenomenon and of scientists attempting in real-time to tease new knowledge out of the sun. In addition to its broadcast, Eclipse| will be seen in an estimated 70-90,000 classrooms over a seven year period.